Late-Pliocene Ice-Age Initiation

Periodic or quasi-periodic variations in key paleoclimatic indicators (benthic foraminiferal .18O and .13C, %CaCO3, and planktonic foraminiferal populations) occurred between roughly 3 and 2.47 Myr. Using data analyses and sensitivity experiments with General Circulation Models, this project will explore whether these oscillations were driven by variations in relatively small Northern Hemisphere ice sheets that did not calve icebergs to the open Atlantic ocean or by large-scale changes in Arctic sea-ice limits. Among many possible causes of the Northern Hemisphere ice age, the project will explore the effect of large-scale tectonic uplift in Southeast Asia (Tibet, Himalayas) and the American southwest (Colorado Plateau, Rockies) on the Northern Hemisphere planetary waves (and thus on climate at the earth's surface). New analyses will extend the high-resolution isotopic time series, and experiments with a model including an interactive mixed-layer ocean will define more accurately the full climatic effects of Late-Cenozoic tectonic uplift. %%% This project will examine climatic fluctuations preceding the initiation of the "Pleistocene" ice ages and the initiation of the ice age itself (which actually began 3.2 million years ago; approximately 1.0 million years before the Pleistocene began). The project will utilize computer models of climate interactions in order to examine the feed-back mechanisms of climate and ocean environments with the tectonic uplifts of major high-altitude land masses. This will be the first attempt to model so many of the variables the cause of respond to climate changes that resulted in the initiation of the ice ages.